New Applications for Atomic Force Microscopy of DNA

9317466 Hansma DNA can now be routinely and reproducibly imaged with the Atomic Force Microscope (AFM) in air and in a variety of fluids, including aqueous buffers. Building on this demonstrated capability, the following 5 research areas are proposed: (1) To image the effects of drug-binding on DNA conformation, using distamycin and other peptides that induce conformation-changes in AT-rich regions of DNA. (2) To increase the resolution of DNA-imaging by using new improved tips and imaging environments selected for minimizing both adhesion and repulsion. Tips will be fabricated with a new AFM-SEM (scanning electron microscope) combination that is currently being built. (3) To label DNA with a variety of reliably distinguishable labels for AFM-mapping of DNA at a resolution of several dozen nucleotides. (4) To improve the quality of imaging of single- stranded DNA. The ultimate goal of this technology is the high- speed sequencing of single DNA molecules. (5) To image processes involving DNA-protein interactions in real time, such as the cleavage of DNA with a restriction enzyme and the interaction of single-stranded and double-stranded DNA with RecA protein. %%% The Atomic Force Microscope (AFM) s a new microscope, invented in 1986, that can feel surfaces with enough sensitivity to map the size and shape of DNA and other biological molecules. For many applications, the AFM combines the convenience and versatility of optical microscopy with a resolution comparable to electron microscopy. Since this high resolution can be obtained even in aqueous solutions, the AFM can image molecules that are biologically active and has the capability of imaging these molecules in action. Atomic force microscopy of DNA has progressed rapidly in the last 2 years. New research can now build on this foundation. ***